Concurrent Computation and the Structure of Applied and Biological Neural Systems

The area of neuroengineering and parallel computing are closely related and their developments go hand in hand. Of the various ways in which a parallel computer can be implemented with individual computational processing elements, the hypercube is one. It is arrived at by taking the sequence of a point to a line, a line to a square, a square to a cube and subsequent generalizations to hypercube architectures. A processor is located at each vertex. Such a topology is not as tightly connected as others but is sufficient to allow significant speed-up in those calculations involving processors in relatively close neighborhoods. The neural architecture is connected much more densely. It is also analog and involves nonlinear summing of signals with subsequent thresholding (taking a large signal or nothing depending upon whether the sum is large or small). It is thus quite different, although it has parallelism in common. The hypercube is a good parallel computer on which to study the behavior of potential neuroengineering systems, for example an artificial vision system. Vice versa, the neuroengineering approaches in development are excellent tools by which to control the loading of the processors in a parallel machine such as the hypercube and to control the actual numerical procedure itself. The fields of endeavor are highly cross-disciplinary. The benefits to the engineering profession by support of such a parallel computing effort will be enormous in terms of speeds of processing and calculations which will be attained, as well as large problems which can ultimately be handled. The orientation of the specific cross-disciplinary team is that of neuroengineering. This is an effort which involves vision in particular and is directed towards its understanding and its operation as an engineering system. In addition, effort is being directed towards understanding of learning and memory processes. Learning in particular involves complex processing which for the moment is too complex and too little understood to be effectively, if at all, integrated into the hardware of a neuroengineered chip or optical system.